CISE Next Generation Program: Workshop on Active Middleware Services

EIA-0087585
Salim Hariri
University of Arizona

CISE Next Generation Program: Workshop on Active Middleware Services

This workshop will provide an outstanding opportunity to explore new, Internet-oriented software technologies that will open new research and application opportunities not only for the multimedia and commercial world, but also for the scientific and high-performance computing community.

We will invite researcher in active networks, Middleware, mobile and intelligent agents, distributed computing, and intelligent applications to investigate the research issues and opportunities enabled by the development of active Middleware services. The workshop will help in defining the important research issues and challenges that must be solved before we can realize an open framework to the development and the implementation of active Middleware services and the workshop will enable the research community to brainstorm on these issues and define the framework that must be followed to address the research challenges facing the develop0ment of active Middleware services.

Contributions will be solicited from well-known researchers in areas related to active middleware services to be presented at the AMS workshop.